Counter-Diffusion CVD for Preparation of Dense Inorganic Membrane Composites

This proposal suggests using a counter-diffusion chemical vapor deposition process to fabricate inorganic membrane composites consisting of an ultrathin inorganic membrane film and a multilayer asymmetric porous ceramic support. These membranes have the potential for high selectivity and flux in gas separations.